US-Czechoslovakia Materials Research on Creep and Cavitationat High Temperatures

This U.S.-Czechoslovakia research project in materials science is between Dr. Terence J. Langdon of the University of Southern California and Dr. V. Sklenicka of Institute of Physical Metallurgy, Brno, Czechoslovakia. Creep deformation at high temperatures is an important problem in many industrial applications and the problem is compounded in those materials, such as copper-based alloys, which are prone to the development of extensive internal cavitation and ultimately to cavitation failure. The researchers will employ their laboratories' extensive experience in the areas of high temperature creep and cavitation failure. They will conduct high temperature creep tests on selected copper-based alloys with the long-term objective of obtaining a more complete understanding of the deformation mechanisms and the role of grain boundary sliding in the development of internal cavities. This project in materials science fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.